Mathematics In-Service for Oakland Teachers

The first year of this college and public school collaborative will provide an intense four week summer institute and monthly academic year follow-up for 90 junior and senior high school (7-12) mathematics teachers of the Oakland Public Schools in California. The second year is designed for 90 middle school (5-8) Oakland teachers. At least sixty percent of the teachers will be minorities. The plan is to assist the teachers upgrade and deepen their mathematical knowledge, beyond the materials of the new text book adoptions. The content, for the first year will range from pre-algebra to pre-calculus, with geometry a requirement for all teachers. In addition, effective teaching methods, assessment materials, classroom procedures will be explored. There is significant cost sharing by the Oakland Public Schools.